Performance of Tilt-Up Buildings in the October 1, 1987 Whittier Narrows Earthquake: Data Collection and Analysis

On October 1, 1987 the Whittier Narrows Earthquake struck approximately 10 miles east of downtown Los Angeles, California. This very well instrumented region includes thousands of tilt-up buildings of varying ages which experienced strong motions and in some cases, significant amounts of damage. Starting the day of the earthquake perishable performance data on approximately 120 tilt-up structures were collected throughout the area. This research project collates the performance data and conducts statistical analyses of it. Detailed performance and structural data are collected for the more seriously damaged structures. Special attention is paid to the relative performance of pre- and post-San Fernando Earthquake structures in order to evaluate seismic code provisions intended to eliminate deficiencies identified in the 1971 event. The documentation of these data will prove invaluable in highlighting serious design and construction problems common to these buildings and in improving the accuracy of future damage estimates. This is desirable because the construction type is very popular for low-rise commercial and industrial buildings and houses many strategic industries.